PYI: Structural Complexity Theory

The structure of feasible computations will determine whether we can efficiently solve the optimization problems posed by nature and the modern world. The project investigates which problems have efficient solutions, and why some problems lack computationally feasible algorithms. Of particular interest are the structural relationships between complexity classes, and the internal structure of complexity classes. A long-term goal is to show that the "structural" approach to computational complexity is a broadly applicable paradigm of research, and a companion to algorithms. Structural approaches to many areas (including real-valued computation and zero-knowledge theory) will be pursued, and many themes of structural complexity theory (including lowness, positive reductions, ranking, and the isomorphism conjecture) will be re-examined.